Interactive Epistemology

Project Abstract INTERACTIVE EPISTEMOLOGY In game theory and its applications to interactive contexts like economics, national and international politics, ecology, computer science, law, and social psychology, it is important to consider what the protagonists know and believe about what other protagonists know and believe. This area of research is called `Interactive Epistemology.` The current study concentrates on two aspects: (1) The consequences of assuming `Common Knowledge of Rationality` -- that all protagonists are rational, all know that, all know THAT, and so on; and (2) developing a `syntactic` model of interactive belief, in which events are described in plain language, rather than the better known but less transparent `semantic` model, in which events are characterized as sets of `states of the world.`